A Model for Teacher Enhancement in Educational Computing in the Sciences

This three-year project will train 260 science teachers and administrators in the Pikes Peak region to use the computer to enhance learning/teaching. Thirty of those participants will be trained as leaders in educational computing in their school districts. Upon completion of year three, these district leaders should be fully trained to prepare and supervise science teachers in educational computing. The task of maintaining the teacher preparation activities will be assumed by these leaders with support from their districts. During year three, the project staff will concentrate on evaluating the effectiveness of this teacher preparation model, and establishing a self-sustaining teacher preparation network in the Pikes Peak region. The network will include advisory committees on educational computing in the sciences within each district and a committee for the Pikes Peak region to facilitate interactions among cooperating districts. During year three, the project will be operating independent of the project staff, and the management of the network will be the responsibility of the districts.